Dynamical Models of Mantle Volatile Evolution

van Keken 9629094 The PIs propose an interdisciplinary study of the evolution of noble gases in the Earth's mantle and its implications for the present-day volatile distribution in the earth. The study will involve the development of a numerical model of rheology-controlled mantle dynamics that incorporates constraints from noble gas geochemistry. Radiogenic ingrowth and mixing will be imposed to simulate the present day observed noble gas distribution in mantle material.